Imaging and Spectroscopy of Comet Hale-Bopp

AST-9615612 David Schleicher Dr. Schleicher will apply a number of observational techniques to understand the physical properties and chemical composition of Comet Hale-Bopp. He will particularly emphasize simultaneous or coordinated observations using different instrumentation such as imaging, spectroscopy and photometry. =============================